NSF/AFOSR Astronomy: First-Light Science with a Coronagraph Optimized for AEOS: Stellar Companions & Disks

James R. Graham
AST 0088316
Abstract

First-light science with a coronagraph optimized for the adaptive optics 3.67-meter telescope of the U.S. Air Force Advanced Electro-Optics System (AEOS) will be used to detect and characterize stellar companions and disks with angular resolutions as high as the diffraction limit. A simple coronograph system is used with the current focal plane capabilities of the telescope. Native Hawaiian students and Maui students participate in the observing and data reduction and analysis through a two-week undergraduate astronomy program.
***